Forecasting Coastal Response to Climate Change: A Workshop

EAR 0002807
Anderson

As a result of two international research conferences held in late 1999 in Honolulu, it became the general consensus that "the ability to forecast coastal environmental change forced both by human influences and ambient processes needs immediate focus and improvement." It was also agreed that a workshop on Coastal Forecasting should be convened. This proposal is a follow-up on that recommendation. PIs are requesting funds to hold this workshop at Rice University during the late summer or early fall of 2000 to identify critical research needed for forecasting coastal response to climate change.